Research Experiences for Undergraduates in Chemistry at the University of Pittsburgh

Dr. Kenneth D. Jordan and other members of the Chemistry Department at the University of Pittsburgh are being supported to establish a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1997-99, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects focussing on computational chemistry and molecular modeling. The program is enhanced by a series of tutorials on the methods of computational chemistry and molecular modeling and their application to chemical problems. The interplay between theory and experiment is emphasized. Participants are recruited nationally.